NSF-Europe: Superconducting Pinning with Artificially Prepared Nanostructures

This is an international collaborative research project that was submitted in response to NSF Solicitation NSF 02-135. This international collaboration focuses on pinning of vortices at state-of-the-art lithographically defined pinning structures. The vortex state will be studied in both low and high Tc materials. The collaboration joins a scientists at the UC San Diego and Universidad Complutense, Madrid, Spain. Both laboratories will be involved with the lithographic structures and with transport and other measurements. The research should shed light on limitations to current transport in superconducting materials and is of interest from both fundamental and technical viewpoints. Students will participate in international research activities, along with traditional and cutting edge training that will prepare them for careers in academe, industry or government.